Symplectic Topology of Link Surgery 4-manifolds

The area of research of this project is the topology of closed symplectic
manifolds of dimension 4. A symplectic 4-manifold is a smooth manifold
endowed with a closed and non-degenerate (symplectic) 2-form. Symplectic
manifolds arise naturally in various areas of mathematics, and their study has
relevant consequences also in physics and engineering. Kaehler manifolds are
natural examples of such manifolds, and until 30 years ago it was an open
question whether other examples exist. Since then, wealth of other
constructions have appeared, and important results (often arising from
the interaction of physics and mathematics) have started to unveil the
richness of this class of manifolds. This project investigates the properties of
certain natural submanifolds of a symplectic $4$-manifold, namely lagrangian
submanifolds (where the restriction of the symplectic form vanishes) and
symplectic submanifolds (where the restriction of the symplectic form is again
symplectic). The common theme underlying the various parts of the project is the
use of a technique, developed by R.Fintushel and R.Stern, that allows one to
construct symplectic $4$-manifolds and study their submanifolds. The first goal
is to study symplectic representatives of the canonical homology class of a
symplectic manifold; it is known, by a result of C.Taubes, that such
representatives exist, but little is known about their topology. The author wants
to show that there exist manifolds whose canonical class admit several
representatives distinguished by the number of components. This would lead to a
better understanding of how to define invariants of a symplectic manifold starting
from the study of its canonical. The second goal is to analyze the existence of
lagrangian submanifolds that are homologous but not isotopic, i.e. connected by a
sequence of embeddings. Results of this kind have been obtained in the past for
symplectic submanifolds, but little is known in the lagrangian case. The third
goal is to study the relation between certain symplectic invariants (recently
introduced by P.Seidel for a particular class of symplectic manifolds) and the
Seiberg-Witten invariants. Other applications of these techniques to other
problems of symplectic and smooth topology of 4-manifolds are expected.

Symplectic manifolds of dimension 4 lie at the intersection between two areas
of research. Both the first, the topology of low dimensional manifolds, and
the second, symplectic topology, are traditional areas of investigations that in
the last 20 years have experienced a tremendous progress. This progress is due
to new and exciting interaction with theoretical physics, that has served as a
source of models and conjectures, and a renewed relation of topology with other
areas of mathematics that has produced in both directions fruitful applications
and consequences. Topology in dimension 4 attracts great interest from both
mathematics and physics as it investigates the dimension of the space-time;
symplectic topology involves the properties of certain manifolds that appear
naturally in the description of problems arising from physics and
engineering. A growing number of researchers, with original and stimulating
approaches, is increasing in a spectacular way our comprehension on the
subject, verifying or disproving old conjectures, and suggesting new relations
with other areas of mathematics and physics. The investigator wants to continue
his research in this field, using techniques of topology that originate from
classical results in theory of knots, in conjunction with modern tools as the
invariants of 4-manifolds introduced by the physicists Seiberg and Witten.
In particular, the aim of the research is to better understand the submanifolds
of a symplectic 4-manifold.